Three Special Focus Programs at DIMACS

Abstract
F.S. Roberts, Rutgers University
EIA Special Projects Program

NSF CISE and EU IST have in place a Memorandum of Understanding to conduct a series of joint program planning workshops in order to develop plans for a series of joint programs in CISE-related areas between the US and the European Union. The EU IST has designated ERCIM as the coordinator of nine planning workshops to be held in Europe over the three year period starting in 2001. NSF will support a travel grant program through DIMACS as requested in this proposal to cover costs of the US delegation to these international program planning workshops, beginning with the Bionics workshop in Brussels on June 18, 2001.